Climate and Meteorology of the Greenland Crest: 1992 - 1995

This project provides for the continued operation and maintenance of an automatic weather station network on the Greenland ice sheet in support of the GISP-2 drilling effort and the associated atmospheric chemistry research. Three AWS units are located at the GISP-2, GRIP, and atmospheric camp sites, while four are located 100 km to the north, east, south, and west of the drill site. These are used to determine the regional divergence and vorticity fields.